NSF BSF: Controlling Molecular and Supramolecular Helicity to Uncover Structure-Property Relationships in Chiroptical and Magneto-Optical Responses

Professor Timothy M. Swager of the Massachusetts Institute of Technology and Professor Ori Gidron at The Hebrew University of Jerusalem are engaging in a collaboration to develop new design paradigms for magneto-optical materials to power new generations technology. They will investigate molecules and assembled materials wherein the electrons have helical movement. These innovative ribbon-like structures are twisted along the direction of electron movement and applied magnetic fields produce magneto-optical effects that can enable superior data transfer, optical computing, and quantum sensing. For example, tiny electrical signals generated by brain activity, nerve impulses, and flowing blood may be imaged by magneto-optical materials to empower medical research to treat or cure disorders. Magneto-optical materials are also foundational for new generations of powerful computer chips that use light beams in addition to electrical signals. The guiding designs elucidated under this project will speed the development of these emerging technologies and advance the STEM workforce through training of graduate students.

Chiral semiconductive polymer assemblies have recently been shown to have record magneto-optical responses. This program will investigate the Faraday activity of chiral twistacene structures to reveal the fundamental chemistry behind the properties of twistacenes and develop the structure property relationships needed to create new high performance quantum materials. Molecular designs from Professor Ori Gidron employ molecular straps to predictably twist polarizable acenoid building blocks for the construction of new semiconductive polymers and assembled solids. Professor Swager has developed geometric structures that have inherent twisting by embedding 7-membered rings into nanographene structures. These latter structures when oxidized provide access to multiple paramagnetic and diamagnetic electronic configurations and chirality will be controlled by association with chiral counterions. MIT has developed a specialized spectrometer for the measurement of Faraday Rotations and as part of this program will also be exploring designs and applications of quantum devices based on magneto-optical materials.